SENSORS: Advanced Sensing for Real-Time Monitoring and Evaluation of Geotechnical Systems

The objective of this research project is to develop a low cost sensor array system, based on current state-of-the-art technology of fiber optic and MEMS sensors, for real-time monitoring of ground motion and ground failures such as liquefaction and slope instability through down-hole measurement. It is expected that the new sensor system will be able to measure 3D ground deformation and 2D soil accelerationdown to a depth of 40 meters. Each sensor array will be connected to a wireless node to anble remote sensor configuration.

This multidisciplinary team research will be conducted by RPI investigators in collaboration with Caltrans and Army Corp of Engineers.

The sensing system would enable a better understanding of ground failure mechanisms and provide an advance sensing tool for geotechnical monitoring. The research outcome will be integrated into the undergraduate curriculum and hands-on sensing module will be introduced to a number of engineering courses.

This is a small team project under NSF 03-512.